Engineering Research Equipment Grant: Geodetic Laboratory Instrumentation

This project will obtain equipment to equip a laboratory to perform geodetic investigations. It will be the only facility of its type and the country should have one to develop new knowledge in the field.